Interactive Project MATHEMATICS!

9553580 Apostol The award winning, computer animated, broadcast quality videotapes on a number of mathematics topics developed at California Institute of Technology under two previous NSF grants are the basis of this project that produces interactive multimedia lessons distributed on CD-ROM. The videotapes use live action footage to relate mathematics to the real world and the interactive, multimedia version moves these materials more firmly into the hands of students.